The Panulirus Hydrographic Stations (Hydrostation S): Years 65-69

The physical properties of the ocean from the surface layers to the abyssal water masses are changing in concert with natural and anthropogenically influenced physical forcing and sustained observations of the ocean are critically important to establish these rates of change. One of the longest open-ocean hydrographic stations in the world is maintained at the Hydrostation S site (formerly known as the Panulirus site) located about 25 km southeast of Bermuda in the North Atlantic Ocean. This repeat biweekly hydrographic observations was initiated by Henry Stommel and co-workers in 1954. Now, in its seventh decade, it continues to be recognized as one of the most important sustained ocean time-series and provides an invaluable metric for the long-term state of the North Atlantic subtropical gyre in relation to the meridional overturning circulation, western boundary transport, and gyre recirculation. For example, the upper ocean warming trend has strengthened (about 0.8° C since the 1970's) while the deep Labrador Sea has cooled by a few tenths of a degree. The signature of deoxygenation has been observed at Hydrostation S in the upper ocean (about 7 micro-moles/kg/decade decrease in dissolved oxygen) as well as an intensification and expansion of the oxygen minimum zone. These changes suggest that the North Atlantic subtropical gyre is experiencing deoxygenation as in the Pacific Ocean as a result of increased upper ocean stratification and reduced solubility of oxygen in warmer waters. The Hydrostation S program and its data set are managed as a service to the ocean community, being openly distributed and used as a resource in understanding processes and patterns of variability in the ocean, as well as for education, mentorship and outreach activities. The Hydrostation S project will contribute to the research and training of six research specialists and research technicians at BIOS and contribute to the research projects of at least three Ph.D. students through on-going educational partnership with Princeton University and the University of Southampton in the U.K. The one-day Hydrostation S research cruises are an ideal platform for testing new sensors and for providing hand-on training to undergraduate students enrolled in summer programs.

The Hydrostation S project is designed to address the overarching hypothesis that the physical properties of the upper-ocean to deep-ocean are changing in concert with natural and anthropogenically influenced physical forcing. Sustained observations of the ocean, such as those from Hydrostation S, remain critically important to establish rates of change to provide quantitative empirical data for myriad regional and global ocean synthesis and modeling of ocean processes and future ocean change. The major objective of Hydrostation S into the seventh decade is to continue the frequent water column sampling of temperature, salinity, and dissolved oxygen (and indirectly, sampling of important ocean carbon time?series) of the North Atlantic subtropical gyre. Such work is complementary to other sustained observations such as the Bermuda Atlantic Time-series Study (BATS) and Ocean Flux Program (OFP). As for the past five years, two CTD profiles will be conducted to better capture the deep-water variability while maintaining all the previous discrete depths. The first CTD cast will profile to full ocean depth (3,200-3,500 m) while the second CTD cast will profile from the surface to 500 m to allow for biogeochemical instrumentation not rated for full ocean depth and to support ancillary studies of ocean physics, biological processes and biogeochemistry. A secondary objective will be to build upon the collaborative comparison of physical data collected as part of two autonomous sensor projects. In the latter stages of the project, as ocean glider deployment becomes more sustainable and reliable, collaborative and comparative efforts will be used to test the capability of ocean gliders to provide data of sufficient quality to detect long-term oceanic change in a "virtual" mooring time-series mode. The robust and highly accurate Hydrostation S data will be used to test the capability of emerging technologies over the next five to ten years.